ITR: Multiple-Word DNA Computing on Surfaces

EIA - 0203892
Smith, Lloyd
University of Wisconsin

TITLE: ITR: Multiple-Word DNA Computing on Surfaces

This effort will extend the scope and power of surface-based DNA computing in two major respects: i) by scale-up of the size of problem addressed experimentally, ii) by increasing computational generality by extending capabilities to the solution of circuit-SAT problems.

Goal (i) will be scaling up the computing process using a problem size of 24 bits as a target goal. 24 bits corresponds to a solution space size of 1.7 x 107 elements, a factor of ten million increase over the 4 bit problem addressed previously.

Goal (ii) - For a computing model to be general, that is, capable of efficiently simulating algorithms used in conventional electronic computing, it must be able to efficiently simulate circuits. The ability to simulate Boolean formulas is not sufficient. In theoretical work, it is shown that the surface-based approach, when using multiple words and the MARK, DESTROY-UNMARKED, UNMARK, and APPEND operations, is such a generalizable approach to computing, but it has not been implemented experimentally. This proposal seeks to implement this approach experimentally and to apply it to the solution of circuit-SAT problems.